ASP Scientific Symposium - Massive Stars: Their Lives in the Interstellar Matter, to be held at the University of Wisconsin on June 23-25, 1992.

This award will support an astronomical symposium entitled: "Massive Stars: Their Lives in the Interstellar Medium," to be held at the University of Wisconsin on June 23-25, 1991. These funds will be used to defray travel costs for 16 young astronomers or invited speakers. This symposium will focus on the star/ interstellar medium interactions for massive stars and call attention to areas needing additional research.